The Wyoming Infrared Observatory Summer Research Program for Undergraduates

The Wyoming Infrared Observatory (WIRO) will be an NSF sponsored Research Experiences for Undergraduates (REU) site for the summer of 1987. The WIRO summer program offers undergraduate students a research opportunity in observational astrophysics projects, image processing and instrumentation. The principal goals of the program are: first, to introduce the undergraduate to a fulfilling experience in infrared astrophysics research, including an introduction to photometric and spectral data analysis, image processing, and observational techniques; second, to expose the undergraduate to several of the diverse research fields in modern astrophysics; third, to offer an opportunity to work directly with active professionals; and fourth, to relate the importance of this research experience to the student's formal education. Participants will come from colleges and universities throughout the nation. A concurrent academic course will help the students place this experience in a wider academic context and provide a general direction of the program. The Wyoming REU program is a highly regarded component of the NSF's effort to directly involve undergraduates at the nation's colleges and universities with professional basic research in science and engineering.